Surface Chemistry of Electronic Materials

The foci of this research are threefold. First, ultra-high vacuum (UHV) surface science will be used to understand details of bonding between substrate surfaces and surface modification reagents. Second, new surface modification methodology will be developed to enable strong, stable bonding of organics to oxide coated surfaces of Si and GaAs and of ITO. Third, the fabrication of new types of sensor devices and diodes based on the surface modified materials will be carried out by this collaborative project.

With this award, the Organic and Macromolecular Chemistry Program and the Solid State Chemistry Program are supporting the research of Dr. Jeffrey Schwartz and Dr. Steven L. Bernasek of the Department of Chemistry at Princeton University. This collaborative effort will focus on several topics that bear on the processing of surfaces of various types of electronic materials. The goal of the project is to develop methodology for surface modification to enable the preparation of stable, designed interfaces between dissimilar materials. In terms of broader impacts, the project has potential for the development of designed bio-medical materials or sensors. The project also provides an excellent setting for the multidisciplinary training of graduate students and postdoctorals